Workshop on: Process of Chemical Exchange Between the Atmosphere and Polar Snow, Il Ciocco, Italy, March 1995

9500818 Bales This award will offer partial support for the travel expenses to the Workshop on Processes of Chemical Exchange Between the Atmosphere and Polar Snow to be convened in Italy in March 1995. The workshop is sponsored by the International Commission of Snow and Ice of the International Union of Geodesy and Geophysics, and by the International Global Atmospheric Chemistry Program of International Geosphere-Biosphere Program. The objective is to summarize, assess, and improve our understanding of the processes that control the transfer of chemical species between the atmosphere and polar ice sheets, in order that the climate record recovered from deep ice cores may be interpreted correctly. The workshop is timely in that it follows the successful recovery of an ice core to bedrock in central Greenland, and coincides with the detailed planning of a deep drilling effort in Antarctica. ***